A Planning Visit to China: Cooperative Research on Nitrogen Dynamics in Meiliang Bay P.R. China, and South Texas Coastal Waters

0076352
Gardner

This is a proposal for a planning visit to Lake Tai, China by Dr. Wayne Gardner, the University of Texas, to discuss a cooperative research project with Mr. Yang Longyuan, the Nanjing Institute of Geography and Limnology. This visit involves planning a research project between the University of Texas Marine Science Institute and the Nanjing Institute of Geography and Limnology and visiting the research sites. The goal is to develop a proposal to study nitrogen fluxes, transportation and sinks in Meilang Bay, Lake Tai and to compare the results to those obtained in Texas coastal waters. The Chinese Academy of Science and the NSF will jointly sponsor this visit.